Paleomagnetic and Rock Magnetic Studies in Support of Research Drilling at Creede, Colorado: UC - Davis Component

This project involves paleomagnetic and rock magnetic studies in support of research drilling of the moat deposits of the Creede caldera. These studies will provide information relevant to the dating and correlation of cores from the moat as well as information about the diagenetic conditions which affected the sediments and volcanic rocks after deposition in the moat. The project represent a collaboration between Kenneth L. Verosub of the University of California, Davis, and Richard Reynolds and Joseph Rosenbaum of the United State Geological Survey, Denver.